Operation SWAB: Monitoring of Ship Contamination

0115035
Happell
This award to University of Miami's Rosenstiel School of Marine and Atmospheric Sciences provides support to "Operation SWAB," a program to test research ships and laboratories for low-level radioisotope contamination. The support provided here helps ensure that samples collected and analyzed for low level tracer studies will not be contaminated by spills of tritium or radiocarbon on the ship or in the lab. The program has been ongoing for twenty years, and this award extends it for an additional five years.
***